Research Initiation: Ductile Fracture by Void Growth and Coalescence

An important failure mechanism for ductile metals is the growth and coalescence of microscopic voids. In this work an explicit Eulerian code will be developed to study at the micromechanical level the dynamic failure of solids by void growth and coalescence. The highly sophisticated and accurate interface tracking methods developed for hypervelocity impact and penetration calculations will be adopted for evolving new surfaces. The accuracy of the Eulerian calculations will result in greater insight into this important failure mechanism.